Spectroscopy of Ordered Materials

This projects deals with optical spectroscopy of metal ions in crystalline solids. The research utilizes laser based tunable spectroscopic techniques applied to investigate dynamical processes in the excited state, cooperative transitions, and dynamic effects involving elementary excitations. A major objective is understanding how optical energy absorbed by ion in crystals is subsequently dissipated in the solid. The research also involves instrument temporal dynamics and nonequilibrium narrow band, high frequency elementary excitations of ordered systems. These issues are of fundamental interest and are important for the development of new laser materials.